REU: Role of the Ocean in the Global Carbon Cycle

This award supports a Research Experience for Undergraduates (REU) Site proposal to provide research experiences for selected undergraduates in marine sciences, with specific emphasis on the role of the ocean in the global carbon cycle, to acquaint them with the excitement and opportunities of academic research and to encourage them to pursue graduates studies and a career in ocean sciences.